Interagency Agreement on Arctic Environmental Data

Through the Interagency Arctic Research Policy Committee, the U.S. Geological Survey has developed and is managing several Arctic data activities. The Arctic Environmental Data Directory (AEDD) is an on-line searchable data base containing descriptions and locations of major U.S. and selective international data sets. It is being added to as new or additional data are located. The Arctic Data Interactive (ADI) is a self contained CD-ROM (computer disk-read only memory) which contains representative scientific arctic information, select bibliographies, and the AEDD. The IARPC agencies agreed to collectively support these activities over the next two years. This interagency transfer of funds partially fulfills requirements of the Arctic Research and Policy Act of 1984 to promote the dissemination of arctic data and information.